NSF Workshop on Reconfigurable Sensor Systems Integrated with Artificial Intelligence and Data Harnessing to Enable Personalized Medicine

This project is to convene a 2-day workshop, attended by a forum of experts in engineering, data science, computer science, biological and behavioral sciences, to explore the state-of-the art and the needs for the next-generation of sensors and systems hardware that integrate advanced data science and computing capabilities. The workshop will focus on the gaps and opportunities for new hardware development as it relates to applications in medicine. The products of the workshop will be a report which provides a technological roadmap that defines the critical needs to bridge the gaps at the interface of sensor hardware, data science, and computer science.

Intelligent, interactive, and networked sensor systems are a growing part of the biotechnological landscape, especially in the area of wearable, implantable, and point-of-use biosensors. The focus of this multi-phased workshop is to determine future strategies for advancing the fundamental understanding and engineering of reconfigurable sensor systems by integrating hardware with data harnessing, real-time learning, and artificial intelligence capabilities. Specifically, this workshop will define the state-of-the-art, necessary innovations, and future challenges facing the research and development of reconfigurable sensor systems for applications in understanding of human physiology, pathophysiology, metacognition, cognition, and behavioral psychology. To achieve this capability, this workshop aims to bring together the knowledge in hardware, theoretical models, methods and processes, and data from multiple disciplines to develop new platforms for addressing challenges at the human-device-data interface.